NSF Minority Postdoctoral Research Fellowship for FY 1998

This action funds an NSF Minority Postdoctoral Research Fellowship for 1998. This fellowship supports research and training in the area of cell biology. The research and training plan is entitled analysis of cytoplasmic dynein light intermediate chains. Cytoplasmic dynein is a minus-end directed microtubule motor complex that has been implicated in a wide array of cellular processes including retrograde axonal transport, centripetal organelle transport, chromosome movement and spindle organization during mitosis. This project is a study of the role of the light intermediate chain subunits of cytoplasmic dynein in the regulation and targeting of this motor protein.